Efficiency and Macroeconomic Consequences of Deterministic and Stochastic Inflation

This project develops models of the interaction of inflation with the price system which are microtheoretic but can be aggregated to shed light on inflation. Two complementary directions of research are pursued, corresponding to the deterministic and stochastic components of inflation. First, the project studies inflationary trends in a monopolistically competitive search market with costly price setting. The model captures the idea that inflation results, through increased price dispersion, in more resources spent on search. Second, the project examines the effects of the variance in inflation rates, in a duopoly model where buyers and sellers face a Lucas-type signal extraction problem. The central issues here are how inflation variability affects the informational content of prices, buyers' incentives to become informed, and firms' monopoly power. According to conventional macroeconomic wisdom, one of the main channels through which inflation disrupts the efficiency of markets is through the increased variability and dispersion of relative prices. This in turn is said to cause many inefficiencies, such as incorrect production decisions, more resources spent on search and a deterioration in the informational content of prices. There is substantial empirical support of this view of inflation. The contribution of this project comes from developing a rigorous microeconomic foundation for addressing the macroeconomic issue of inflation and for interpreting empirical facts. By dealing with inflation both in trend and in variance, and analyzing its effects in two very different models, this project should encompass a wide range of efficiency effects, and cast theoretical light on several important propositions about inflation.